Number Theory Problems Over Local Fields and Function Fields

DMS-0600919
Brian Conrad

The PI proposes to work on some geometric questions that arise in
number-theoretic questions over global function fields and p-adic fields. In the theory of overconvergent classical modular forms, the canonical subgroup of Lubin and Katz (for a p-adic analytic family of elliptic curves) has been an important tool. The recent interest in p-adic modular forms beyond the classical case has motivated several different constructions of canonical subgroups for abelian varieties,
and recent work of the PI has led to another higher-dimensional theory
that, at least in its geometric aspects, has a wider range of applicability than the other approaches. The PI proposes to use deformation-theoretic methods to make explicit certain abstract estimates in the theory, and to draw
arithmetic consequences for p-adic families of automorphic forms.
In another direction, the PI and co-workers have used methods from
deformation theory and rigid-analytic geometry to develop a theory of a
new global parity obstruction to randomness properties of prime
specialization of inseparable irreducible polynomials over
certain coordinate rings of curves over finite fields. This has given
rise to families of elliptic curves with unexpected rank behavior
over global function fields (under some standard conjectures) and seems
likely to have further Diophantine applications
to Mordell--Weil ranks for families of abelian varieties over global
function fields. The PI proposes to develop a better
understanding of this basic arithmetic phenomenon and to work out some
further consequences for ranks in families.

Number theory is among the oldest subjects in mathematics, since it is
ultimately concerned with the relatively concrete
problem of studying properties of whole numbers. Such problems can
take on the form of finding whole number solutions
to systems of equations in many variables, or problems relating to
properties of primes, and so on. Typically one has to bring in some deeper structural information (provided by geometric, algebraic, or analytic ideas) to make progress on such questions, and in the last several decades a very wide range of sophisticated geometric techniques have been developed to attack these problems. Moreover, though the initial motivation comes from within pure mathematics, security of
electronic telecommunications has come to be related in an essential way to many of these number-theoretic problems (such as
prime factorization and studying points on curves over finite fields)
and the geometric concepts used to attack them. This proposal focuses
on both geometric and prime factorization questions that arise in
several number-theoretic settings, aiming to develop some
new theoretical methods and to apply them to specific problems. In
addition, the PI proposes to continue his long-standing tradition of supervising high-level number theory research by talented high school students and giving talks to larger groups of students at the high school, undergraduate, and graduate levels. He will also complete two books that, together with assorted freely available notes already posted on his web site, will provide useful references for graduate students who wish to learn about some fundamental topics in arithmetic geometry.